Model Theory, Algebra and Geometry

Abstract

Award: DMS-0303618
Principal Investigator: Thomas W. Scanlon

The research supported by this award is to be performed by
Matthias Aschenbrenner, under the sponsorship of Thomas
W. Scanlon. These projects in model theory and its applications
to algebra and geometry are concerned with asymptotic
differential algebra, o-minimal geometry, and bounds and
algorithms in algebra. The project on asymptotic differential
algebra will pursue model-theoretic and algebraic properties of
Hardy fields and transseries, and the relationship between them.
A Hardy field is an ordered differential field of germs of
real-valued, once-differentiable functions defined on
neighborhoods of positive infinity in the real line; they are
important in the asymptotic theory of differential equations and
appear naturally in connection with o-minimal expansions of the
real field. An example of a field of transseries is the field of
logarithmic-exponential series over the real numbers, which has
been explored by analysts as well as model-theorists. Among the
algorithmic issues in algebra that will be investigated are
algorithms with performance bounds for polynomial rings over the
integers and for rings of power series; problems for which good
algorithms are sought include tests for ideal membership.

The idea of the branch of logic called model theory is, roughly, that
if we know all of the simply-stated truths about an object then either
we should know how to recognize that object uniquely, or anything else
sharing the same collection of first-order properties should be
revealing like the original and might sometimes be easier to study.
To be more precise, model theory studies mathematical structures by
considering the first-order sentences true in those structures, and
the family of alternate structures that also satisfy all of those
first-order sentences. (Sentences in logic are built out of a small
repertoire of elements and constructions. "First-order" refers to the
number of quantifiers in a sentence, a measure of complexity.)
A model for the algorithms and bounds sought in some of these projects
is long division: if you are given two whole numbers to divide by hand
then you can estimate the number of steps required by long division
by comparing the number of digits in the decimal expansions
of the dividend and divisor.